RUI: Studies of Kaons and Phi Mesons

9503783 Rubin This grant supports research under the NSF program to promote Research at Undergraduate Institutions. The Principal Investigator and students participate in a group continuing an experiment at the Brookhaven National Laboratory. They are collecting data on rare decays of long- lived neutral K mesons. The results will provide a test of predictions of the Standard Model of electroweak interactions. ***